Conference on The Productivity Impacts of Information Technology Investments; November 11-13, 1993; Charleston, South Carolina

9318659 Berndt This workshop was held on November 11-13, 1993 in Charleston, South Carolina. It brings together leading individuals from the international research community to explore ways of improving the ability to assess, measure and otherwise understand the economic and organizational impacts of information technology investments. Participants at the workshop come from a variety of different disciplines -- computer science, organization theory and economics, as well as from different research organizations -- academia, national and international statistical organizations, and national research funding centers. Particular attention is devoted to the availability and/or necessity of data sets amenable to testing alternative hypotheses. Another important purpose of the workshop is to set an appropriate research agenda to guide national research and statistical funding agencies and the Organization for Economic Cooperation and Development (OECD). Proceedings of the workshop are to be published as a special edition of the journal, Economics of Innovation and New Technologies, in the Summer of 1994.